Spatial-Domain Techniques for Finite Element Model Updating Via Laser-Based Experimental Modal Analysis

This U.S.-Brazil Cooperative Science award will support the collaboration of Larry Mitchell of Virginia Polytechnic Institute and State University and J. Roberto F. Arruda of the Universidade Estadual de Campinas in Brazil. The project aims to investigate the use of spatially dense experimental response data to update the finite element (FE) model describing that same structure. The researchers will use a unique scanning Laser Doppler Velocimeter (LDV) to measure a response image at up to over 65,000 points on the structure, in order to develop spatial- domain techniques for LDV data reduction and modal parameter extraction. These methods will be used to update the FE model so that its predictions more closely match the measured data. This work will, for the first time, allow spatially detailed experimental data to help define defects in the FE models and provide a basis for spatial-intensive data to be used to extract experimentally based modal parameters. The U.S. side has a laser facility and experimental measurement expertise in a modal test scenario. The Brazil group has capabilities in applying FE methods to dynamic structural modeling and experimental modal testing experience. ***//